Numerical Simulation of Rough Surface Scattering Character- istics

The objective of this research is to model scattering theories and to validate the models. Numerical simulation studies are being conducted and indicate that a wavelength filtering concept applies only in the low-to medium-frequency region and that a two-scale concept is not generally valid. More analysis of random surface scattering properties is planned, which should extend the range of validity of surface scattering theories.